CAREER: Principles, Practice, and Applications of Tabled Logic Programs

9702681 Many practical problems such as compile-time analysis of programs, verification of concurrent systems, planning by intelligent agents, and diagnosis of physical systems have in common the fact that they can be easily specified using logic. However, attempts to execute such specifications using traditional logic programming techniques usually do not terminate, and are thus impractical. This project seeks to create a logic programming system which can solve such problems and draws on recent research in tabled and constraint logic programming. Tabled logic programming, particularly the XSB system, terminates for large classes of programs, and permits reasoning in the presence of inconsistent information through its semantics for default negation. Constraint logic programming allows problems in theories such as the real numbers to be expressed declaratively and solved automatically. The project will create a unified computational basis for the two paradigms using XSB as a starting point. For certain problems in the verification of concurrent systems and in program analysis, large programs based on C already have been replaced with a few hundred XSB rules with no loss in efficiency. The project will increase the number of such problems for which a logic-based specification leads to an efficient, practical system. ***